Variational Path Sampling for Rare Dynamical Events

David Limmer of the University of California, Berkeley is supported to develop new computational methods for predicting the behavior of molecular systems driven far from equilibrium. Many important chemical, biological, and materials processes occur under conditions where energy is continuously supplied or strong external forces are applied, causing molecules to behave in ways that cannot be understood using traditional theories. He and his research group will create tools that enable scientists to predict how molecules react, reorganize, and transform under these conditions, providing insights that could accelerate the development of new materials, technologies, and biologically inspired systems. David will also increase access to modern theoretical chemistry through educational resources and training opportunities. By incorporating artificial intelligence and machine learning techniques to learn and represent complex molecular interactions and devising novel physically interpretable models, the research will contribute to NSF’s priority area of AI-enabled scientific discovery.

David Limmer and his group will develop a theoretical and computational framework for studying molecular systems driven far from equilibrium, where traditional equilibrium-based methods fail. The research will focus on two complementary methodological advances that leverage modern artificial intelligence advances in generative modeling. Variational path sampling will combine principles from nonequilibrium statistical mechanics with flow matching methods for learning high-dimensional many-body forces to efficiently estimate rates of rare events in driven molecular systems, including acid dissociation under strong electric fields and force-induced bond rupture under shear. Nonequilibrium instanton methods will leverage recent field-theoretic descriptions of nonequilibrium steady states to predict transition rates between competing stable dynamical phases. Together, these approaches will provide scalable and predictive tools for analyzing dynamics, phase transformations, and rare events in complex nonequilibrium molecular systems, significantly advancing the capabilities of computational chemistry and statistical mechanics. The synergistic incorporation of principles of nonequilibrium statistical mechanics in formal course material, and online resources will strengthen these findings.